Undergraduate Research Pariticipation in Electrical Engineering

Ten undergraduate students will participate in research during the 1990 summer. The research projects include: (1) Microwave Acoustic Materials and Devices; (2) Robotics and Computer Vision; (3) Semiconductor Material and Device Property Measurements; (4) Motion Control; (5) Application Specific Computer Architectures; (6) Environmental Radio Noise Measurements; and (7) VLSI-Based Neuron Models. At least six students will come from institutions where research opportunities are limited and at least three students will be women, handicapped or minorities. Students chosen for the program will have displayed a high degree of initiative and independence of thought in both laboratories and coursework. Student research projects are chosen to match the student's interest and educational level. In addition to extensive facilities, students will also have access to facilities at various nearby industries such as Bangor Hydroelectric and Central Maine Power Companies, James River, Champion and Scott Paper Companies, Digital Equipment Corporation and National Semiconductor. At the Program culmination a written report and an oral seminar are expected from the student. Three academic credits are awarded to the student upon satisfactory completion of the program.